Mathematical Sciences: Mid Atlantic Mathematical Logic Seminar (MAMLS)

DMS-950993 CUNY-Baruch - Arthur Apter The Mid Atlantic Mathematical Logic Seminar (MAMLS) was formed in 1982. Since then it has been supporting three or four regional meetings in logic per year, each of 1-2 days' length. The hosting of the meetings is shared among several institutions, with additional support for the seminar from the host institution in most cases. The topics cover a broad spectrum of topics from mathematical logic, with program constructed by the host organizers. NSF support is provided for some of the expenses of the speakers and the attendees from the region, in particular of the graduate students who attend.